Travel Grant for U.S. Academic Participants in Workshop on World-Wide Industry-University-Government Research Collaboration Models in the Chemical Sciences & Engineering

Abstract - Reklaitis - 9529532 This grant is to provide support for the travel expenses of fourteen U.S. Academic participants to a workshop that will explore world-wide industry/ university/ government (IUG) research collaboration models in the chemical sciences and engineering. The purpose of the workshop is to resent and discuss such models which are being employed outside the U.S., that is, in Europe, the Pacific Rim, and North America. The intended result is the identification of best practices and components which may be appropriate for the U.S. environment. The workshop presentation, discussions, and recommendations will be captured in a final report which will be widely disseminated in the chemical research community. It is envisioned that this workshop will serve to launch a regular series of workshops which will continue the process of assessing innovations in IUG collaboration models. Research collaboration is dynamically evolving around the globe should be monitored to provide the U.S. chemical research community with information about successful and transplantable practices. .